Computer Science, Engineering, and Mathematics Scholarship Program (CSEMS)

This program provides financial and academic support for talented low-income students in computer science and mathematics. The recruitment and retention of under- represented minorities and women is a priority with an expectation of doubling the graduation rates for these students. These students participate in scholarship activities including monthly meetings; conversations with other students, graduates, faculty and representatives from industry; mentoring; internships; and research with faculty. The student support structures are constructed specifically to meet the needs of students at the university and to assist them in finishing their education, choosing a career, and obtaining successful employment or placement in graduate school.